III: Small: Managing Large-scale Uncertain Data Repositories

Increasing numbers of real-world application domains are generating data that is
inherently noisy, incomplete, and probabilistic in nature. Examples of such
data include measurement data collected by sensor networks, observation data in
the context of social networks, scientific and biomedical data, and data
collected by various online cyber-sources. The data uncertainties may be a
result of the fundamental limitations of the underlying measurement
infrastructures, the inherent ambiguity in the domain, or they may be a
side-effect of the rich probabilistic modeling typically performed to extract
high-level events from sensor and cyber data. Similarly, when attempting to
integrate heterogeneous data sources ("data integration") or extracting
structured information from text ("information extraction"), the results are
approximate and uncertain at best. However, there is currently a lack of data
management tools that can reason about large volumes of uncertain data, and
hence the information about the uncertainty is often either discarded or
reasoned about only superficially.

In this project, we are building a complete probabilistic data management
system, called PrDB, that can manage, store, and process large-scale
repositories of uncertain data. PrDB unifies ideas from "large-scale structured
graphical models" like probabilistic relational models (PRMs), developed in the
machine learning literature, and "probabilistic query processing", studied in
the database literature. PrDB framework is based on the notion of "shared
factors", which not only allows us to express and manipulate uncertainties at
various levels of abstractions, but also supports capturing rich correlations
among the uncertain data. PrDB supports a declarative SQL-like language for
specifying uncertain data and the correlations among them. PrDB also supports
exact and approximate evaluation of a wide range of queries including inference
queries, SQL queries, and decision-support queries.

The cross-disciplinary research undertaken during this project will enable us to
simultaneously address the challenges in the areas of probabilistic databases
and machine learning, and allow us to transfer the key technologies developed
between those areas, thus advancing the research in both areas. It will enable
the development of a significant and high-impact new class of real-world
applications, in a variety of domains including health informatics, social media
management, World Wide Web, and scientific databases. The PrDB system source
code, and the datasets generated during the project, will be released using an
appropriate open source license, at the project web site:
http://www.cs.umd.edu/db/PrDB.html